An Environmental Supplement for Introductory Physics Courses

9354383 Dubeck This project will write a 1OO-page-long environmental supplement (A World View of Environmental Issues) which will be published by Saunders College Publishing to accompany the textbook Physics: A World View, by Kirkpatrick and Wheeler, which has sold 15,000 copies in its first year. Over a 3-5 year period, an estimated 50,000 copies of the supplement will be shrinkwrapped with the text and offered free of charge to all students and faculty. Formative testing of the supplement and student evaluations of the topics covered will be conducted in large introductory physics courses at Temple University. Each topic will describe the way society reacts to scientific and technological developments through the legal system. The depiction of these issues in the visual mass media will also be analyzed. The environmental issues to be discussed are: nuclear power plants and-nuclear waste; indoor air pollution; stratospheric ozone depletion and the greenhouse effect; and electromagnetic waves: effects on humans. The staff consists of one physicist who has co-authored several textbooks/instructor's manuals, one environmental lawyer with a biology background, two environmental engineers, a media specialist, and a research librarian. The authors of Physics: A World View and Saunders staff will help produce the supplement. The staff will write articles describing the supplement and student reactions to the topics.